Thin Film Integrated Optical Waveguide (IOW) Immunosensors

9402355 Reichert The research proposed in this application addresses engineering and materials aspects of assembling integrated optical waveguide immunosensors. As presented, immunochemistry, coupled with novel optical detection phenomena, is a powerful approach to in situ biosensing problems. This work develops thin film integrated optical waveguide fluoroimmunosensors with: (1) increased sensitivity to ultra-low analyte concentrations, and (2) the ability to perform multi-analyte detection on a single chip device that can be mass produced inexpensively in large quantities. The novel aspect of the work is not the production of multichannel waveguide, grating coupled waveguides or thin film waveguide immunosensors. The innovation is combining these three technologies to produce a multichannel, grating coupled, thin film immunosensor, and making them with optical properties in a manner that is fully process oriented. ***